Social Interactive Literacy: Mechanism for Developing and Sustaining Resilience in At-Risk Children

The purpose of this two-year pilot study is to determine if
acquiring and mastering proficient language literacy will help young
children of poverty develop and sustain resilience. Resilience is generally
defined as positive adaptation in the midst of and following trauma; the
resilient child does not experience subsequent behavioral and emotional
problems. The project is based on research that shows that some children
who live in adverse circumstances, such as poverty, and who have undergone
traumatic experiences have been identified as resilient despite their
susceptibility to the associated risks. In addition, researchers have
identified specific cognitive and socioemotional characteristics and
behaviors that appear to be common among resilient children across
situations. Therefore, the primary goal of this study is to determine if
there is a connection between language literacy proficiency and resilience
in young children of poverty. Approximately one hundred children will
participate in the two year-year longitudinal study; they will be followed
as first graders during Year1 and as second graders during Year2.
Classroom teachers will incorporate into the regular curriculum a
concentrated, intense language literacy program through which the children
will receive enhanced literacy training. The program will stress reading,
vocabulary, writing, and higher-order thinking. To evaluate the
effectiveness of the program, the children will be assessed on cognitive
competence and academic performance, social functioning, and home and
family context. Findings from the pilot study will be used to institute a
larger research project and to develop methods that school personnel can
use to help children become resilient. Two major positions underly the
project: (a) Resilience can be acquired, and (b) advanced literacy
proficiency in the dominate mainstream language contributes to resilience
in children of poverty.